International Conference on Gauge Theories; Ann Arbor, Michigan; May 16-18, 1991

An International Conference on Gauge Theories - Past and Future will be held May 16 - 18, 1991 at the University of Michigan. The conference will bring together some of the leaders in elementary particle physics (in which gauge theories have played a central role in the past two decades), as well as younger physicists, and provide a forum for the discussion of both experimental and theoretical developments in gauge theories.